Algebras and ordered sets: structure, enumerability, decidability

9971352
McKenzie
McKenzie will investigate algorithmic questions that involve
properties of finite algebras determined by the varieties and
quasi-varieties they generate: Is there an algorithm to determine if
the quasi-equations valid in a finite algebra A are finitely based?
Is there an algorithm to determine if the quasi-variety generated
by A possesses a natural duality? Is the class of finite algebras
possessing a finite equational basis recursively enumerable? Is the
class of finite algebras generating a residually large variety
recursively enumerable? Additionally, he will work toward a complete
determination of all finitely generated varieties that possess
definable principal congruences. Farley is working productively on a
large variety of problems in duality theory and combinatorics of
ordered sets. Most significant is the conjecture that all perfect
sequences of a chain-complete ordered set converge to the same
``core,'' up to isomorphism, and, closely related, the conjecture that
the fixed-point property is preserved under direct products of
(unrestricted) ordered sets. Farley and McKenzie will attempt to
prove Birkhoff's cancellation conjecture for exponents of finite
ordered sets in the case where the exponent is dismantlable.
I. Universal algebra is a branch of mathematics that deals with
the unknown. The old adage, that if it looks like an orange, smells
like an orange, and tastes like an orange, then it IS an orange, does
not apply. One can have a collection of objects about which all we
know is that one can add and multiply them like numbers, and that the
``usual'' rules apply --- for instance, x+y always equals y+x --- but
still not be dealing with numbers. Given a particular mathematical
system, call it A, there will be a whole variety of mathematical
systems that satisfy the same algebraic rules. McKenzie will examine
what one can say about this variety of systems if one just knows about
A. II. The theory of ordered sets is a branch of mathematics that
deals with, well, order: If one has a collection of objects, and it
makes sense to ask, ``Is object P bigger than object Q?'' then one has
an ordered set. For instance, the collection N of natural numbers
(1,2,3,4,...) is an ordered set. Ordered sets can be added and
multiplied like numbers --- N*N is the collection of pairs of points
(a,b) where a and b are natural numbers. A natural question to ask
is: If P and Q are ordered sets with a particular property, does P*Q
have this property? Farley will address this question when the
property is the "fixed point property"; this is a difficult
long-standing problem. Farley and McKenzie will also attempt to solve
a problem dealing with the exponentiation of ordered sets, a problem
over 50 years old.
***